Presidential Young Investigators Award: Uptake and Release Mechanisms for Organic Contaminants in Soils and Aqueous Systems

This is an award to support research by this Presidential Young Investigator (PYI) on physical and chemical mechanisms that affect migration of synthetic organic chemicals in groundwater and the fate of these contaminants when the water is extracted from subsurface aquifers and subjected to water treatment processes. This project involves investigation of the extent and rate of organic contaminant uptake by natural solids found in soils and determination of the controlling mechanisms. This is the initial, base-level award for this PYI. Results of this research are likely to be applied in engineering design of processes and systems for decontamination of soil contaminated by organic chemicals from accidental spills or by substances leaching from disposal sites for hazardous wastes. The results may also be applied in engineering design of treatment processes for removal of organic contaminants from water.